Dual-Mode Control of Magnonic Metamaterials for Neuromorphic Computing

Non-technical Abstract: Adaptive magnetic materials that respond dynamically to electric fields have the potential to transform future information technologies, including neuromorphic computing, edge computing, and reconfigurable radio-frequency systems. Magnetic materials and devices offer exceptional speed, low energy consumption, and compatibility with existing semiconductor technologies. However, most magnetic devices remain functionally fixed once fabricated, limiting their ability to adapt to changing computational demands. This project develops a new class of adaptive magnetoelectric magnonic (“spin-wave”) metamaterials whose magnetic properties are reconfigured using electric fields. The research team combines two complementary mechanisms within a single materials platform: voltage-driven ionic transport, which produces large, nonvolatile changes in magnetic behavior, and voltage-induced elastic strain, which provides rapid, reversible tuning of magnetic response. These mechanisms enable adaptive magnetic functionality across multiple time scales while establishing new approaches for low-power information processing. The project integrates materials synthesis, nanoscale characterization, micromagnetic simulations, and device design to accelerate the development of adaptive magnetic materials. Graduate and undergraduate students receive interdisciplinary training across condensed matter physics, materials science, nanofabrication, and advanced characterization techniques. Outreach activities expand STEM engagement throughout Oklahoma through laboratory experiences, curriculum development, and partnerships with K–12 students and educators.

Technical Abstract: This project investigates the fundamental physics governing dual-mode voltage control of magnetic materials by integrating magneto-ionic and magnetoelastic coupling within magnetoelectric heterostructures. The central objective is to establish how voltage-driven ionic transport and voltage-induced elastic strain independently and cooperatively modify magnetic anisotropy, exchange interactions, spin-orbit coupling, and spin-wave dynamics to create adaptive magnonic metamaterials. The research team pursues three coordinated objectives: (1) establish ionic control of spin-wave behavior through oxygen and lithium migration; (2) establish elastic control through piezoelectric strain coupling in magnetoelectric heterostructures; and (3) integrate both mechanisms to realize adaptive magnonic devices that exhibit multistate and neuromorphic functionality. Thin-film materials and patterned magnetic nanostructures are synthesized and characterized using Brillouin light scattering, ferromagnetic resonance, magneto-optical microscopy, magnetic force microscopy, synchrotron x-ray techniques, and complementary computational methods including micromagnetic simulations, density functional theory, and machine learning. The resulting understanding establishes the physical mechanisms governing adaptive magnetic materials operating far from equilibrium, provides quantitative design principles for voltage-controlled magnonics, and establishes a materials platform for adaptive, low-power information technologies.